Integrated Sensing: Collaborative Research: Objective-oriented Mobile Heterogeneous Sensor Networks for Coordinated Control

Objective-Oriented Mobile Heterogeneous Sensor Networks for
Coordinated Control

This proposal focuses on a comprehensive study of large, mobile ad hoc
reconfigurable networks for coordinated control, using coordinated
autonomous flight as a guiding example problem. State estimation
provides a link between control and communications which admits
heterogeneous sensors, that is the combining of dissimilar or
different accuracy data using concepts which underpin data
fusion. Management of complexity and preservation of design principles
are keys to the development of workable, tunable, mission-oriented
systems with many components.

The intellectual merit of this collaborative research proposal hinges
on the drawing together of cognate and disparate elements from
coordinated control, dynamic state estimation, ad hoc network
management, resource assignment, and fault tolerance. Its aim is to
provide a formalism in which the methods of sensor networking may be
integrated as part of a systematic design process focused on achieving
a specific control objective. This provides a framework for the
development of methodologies for embedding a sensor network in a
context of control performance.

The broader impact of this research is that it ties together tools and
techniques from distinct areas using concepts of information
quality. The team is multi-disciplinary across a gamut of Systems
Engineering and the problem area impacts a range of fundamental
problems in the individual areas of specialization. This linkage
across communications, control, networking and estimation is a
perceived bottleneck of current design techniques.